Industry/University Cooperative Research Center for Precision Metrology

The Industry/University Cooperative Research Center for Precision Metrology (CPM) supports the necessary cohesion between university researchers and supporting affilates from the tight-tolerance manufacturing community for the development of the next generation of manufacturing engineers, measurement techniques, metrology instrumentation, efficient processes, and enabling products that will facilitate advances in precision manufacturing where state-of-the-art dimensional tolerances on the order of ten parts per million are common.

The above-mentioned broad objective will be realized through the examination of real world precision related manufacturing problems presented by industrial affiliate members in conjunction with university faculty and student researchers. The problems addressed will have sufficient generic interest for industrial affiliate members to approve by vote at semiannual meetings. Addressing real problems will provide the students with an applied education pertinent to current tight-toleranced manufacturing challenges and result in highly-trained employees that can solve similar problems in a real-world environment.